Assuring a future US Based Nuclear Chemistry expertise

With the support of the Division of Chemistry, Dr. Dorothy Zolandz from the National Academies of Sciences (NAS) will establish a 15 member committee of experts from academia and industry to assess the US National needs for training of the next generation of the nuclear workforce. The group will meet several times in Washington D.C. and will draft a report that will be widely disseminated to federal agencies, industrial groups, as well as the nuclear chemistry community.

Previous studies have suggested that the US may be facing a critical shortage of workers trained in nuclear and radiochemistry, but there have been no recent reports that have evaluated the national needs, potential training opportunities, and possible solutions to this problem. Nuclear energy provides approximately 20% of the US electrical energy requirements and radionuclides are widely used in industry and medicine. This study will provide valuable guidance for new training modalities to assure that the US has a workforce with adequate expertise in nuclear, radiation, and radiochemistry for the continued growth of the US economy and for improvements in health care.